Revised Curriculum and Modernization Plan for Elementary Physics Laboratories

We are upgrading and modernizing non-calculus and calculus- based elementary physics undergraduate laboratory courses in mechanics, electromechanics and optics. This involves revision of the laboratory curriculum, development and acquisition of related instructional equipment including computer-based data- acquisition systems and integration of data-analysis and CAI software with laboratory work.